Instrumentation for a Two-Year Chemistry Laboratory Tech- nician Program

The primary aim of the project is to improve the quality of a new and innovative chemistry laboratory technician program through the acquisition of a UV-Visible Diode Array Spectrometer, Gas Chromatograph, Liquid Chromatograph, Refractometer, and pH meters, as well as computer interfacing equipment. The instruments are also being used in chemistry courses taught to students who intend to transfer to four year colleges. Due to the working partnership created between the college and the chemical industry in developing and running the program, both are sharing the responsibility for contributing and/or purchasing equipment as a match to the project. The grantee is matching the award from non-Federal sources.